US-European Workshop on Bridge Evaluation, Repair and Rehabilitation

The objective of the US-European Workshop on Bridges is to the recent
advancements in bridge engineering, focusing on new materials and technology, monitoring
and diagnostics involving integrated sensor systems, new methods of analysis, design,
evaluation, repair and rehabilitation of bridges used in Europe, and identify the most
suitable topics for joint research projects. The major areas to be covered include: (1)
advanced materials (high-strength/high-performance concrete and steel, composites,
fiber-reinforced concrete, smart materials), (2) development of load and resistance models
for steel and reinforced concrete and prestressed concrete structures, (3) diagnostic
procedures (tests, performance monitors, nondestructive techniques, signal processing,
integrated sensor systems, acoustic and optical techniques), (4) materials and techniques
for repair and rehabilitation of concrete structures (reinforced and prestressed concrete,
steel, new composite materials). Accordingly the Workshop attempts to state of
the art summary of main topics as viewed on one hand in the U.S. and, on the other hand,
in Europe, identify the research needs, in particular topics for cooperative projects; and
derive some recommendations that reflect the needs in manpower, technology transfer and
education for the near future. The Workshop involves researchers and consultants. The
local organizers also organize special meetings, a conference, and field trips to the
construction sites. The results will be presented in the final report.